MRI-R2: Acquisition of a Field Emission Scanning Electron Microscope (FESEM) at the University of Wyoming

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

With this award from the Major Research Instrumentation (MRI) program Professor
Bruce A. Parkinson and colleagues Carrick M. Eggleston, Susan M. Swapp and Jinke Tang from the University of Wyoming will acquire a field emission scanning electron microscope (FESEM) with energy dispersive spectrometry (EDS), e-beam lithography, electron beam induced current (EBIC), scanning transmission electron (STEM), and a low-voltage, high-contrast detector. The award is aimed at enhancing research training and educations at all levels especially research ranging from microbiological interaction with minerals to nanocomposite or nanoparticles alloys, solar energy research involving nanostructured films of photocatalytic oxides and photovoltaic materials, nanoparticle energy storage and conversion materials as well as research on microbial and biofuel cells.

Scanning electron microscopy (SEM) is a widely used technique for providing images of surfaces. The FESEM is equipped with a cathode in the electron gun. The images are obtained from scanning the surface with a beam of electrons that are accelerated under the influence of a strong electrical (field) voltage. This important technique enables scientists to see the ultrastructural details of fabricated systems, molecular arrangements of man-made nanostructures and the subtle changes associated with friction and wear in surfaces. The studies described here will impact a number of areas, including chemistry, materials chemistry, geology, biochemistry and the environment. This instrument will be an integral part of teaching as well as research.